X-Ray and Neutron Scattering Studies of Structure and Fluctuation Phenomena in Side Chain Polymer Liquid Crystals

Side chain polymer and elastomer liquid crystals are new classes of materials which uniquely combine two competing phenomena; isotropic fluctuations of polymers and anisotropic orientational and translational order fluctuations of liquid crystals. They exhibit novel nematic liquid crystalline structures and phase transitions, and offer a new perspective on the unsolved nematic- smectic-A problem. A change in the number of spatial dimensions explored by the polymer chain should occur with the establishment of smectic order in these systems accompanied by an interesting cross-over behavior among four relevent length scales. This provides an opportunity to experimentally study the statistical mechanics of a random coil in two dimensions. The synthesis and preliminary studies in this area have been performed mostly outside the United States. They propose here a combination of two powerful techniques, high-resolution x-ray diffraction and small-angle neutron scattering, to study subtle aspects of the structure and critical phenomena in these materials. They proposed research should help bring this interesting area into the main stream of condensed matter research in this country.